Marine Biotech Fellowship: Molecular Genetic Studies of Sulfur-Oxidizing Chemoautotrophic Bacterial Symbionts in theHydrothermal Vents

Sulfur-oxidizing chemoautotrophic bacteria have been shown to occupy a symbiotic niche in the trophosome tissue of the vestimentiferan tube worm Riftia pachyptila, found at deep-sea hydrothermal vent sites. The endosymbionts are contained within host bacteriocytes, where they are supplied with nutrient substrates by the host. The tube worm absorbs these nutrients from the seawater, through its highly vascularized plume and transfers them by the blood hemoglobin to the symbionts. H2S, released in the hydrothermal vent fluid, and O2 from ambient seawater, are used in the sulfide-oxidation reactions, generating ATP to fuel CO2 fixation, which is the basis of the animal's nutrition. The symbiont-containing tissue contains high activities of the sulfur- oxidizing enzymes ATP sulfurylase and APS reductase, and the Calvin-Benson cycle enzyme, RuBPC/O. Numerous other examples of similar symbiotic relationships between bacteria and marine invertebrates have been reported from vents, deep-water seeps and near shore sediments, but the enzyme data are rarely clear cut enough to implicate specific sulfur oxidation pathways as they are for the Riftia paradigm. Many questions remain concerning various symbiont's interactions with their hosts. In virtually all cases it is not known whether symbionts are transferred to progeny via eggs (or sperm) or whether each generation of larvae acquires symbionts de novo from the environment. In no case has a free-living form of a symbiont been identified in a water sample. If de novo acquisition does occur: 1. Can multiple host species be colonized by a single symbiont species? and 2. Does the host cause changes in symbiont morphology, and does it somehow control the expression of pertinent genes, such as those involved in sulfur oxidation? Extensive characterization of these various symbionts has not been possible because they have remained unculturable. The goal of this project is to overcome this obstacle by the use of a molecular genetic approach. An immediate goal is to clone and sequence the bacterial specific genes for ATP sulfurylase, APS reductase and RuBPC/O from a R.pachyptila genomic lambda library. From the nucleotide sequences the research will derive information about gene regulation, which may lead to a better understanding of interactions with the host. The genes can be used as probes in diverse symbioses to identify unculturable bacterial symbionts as sulfur-oxidizing chemoautotrophs, and to demonstrate their capacity for specific sulfur-based catabolic pathways. Likewise they can be used to identify a free-living bacterium as the R.pachyptila symbiont. These genes will also be used as probes in a restriction length polymorphism analysis of symbiont evolutionary relationships in R.pachyptila and Tevnia jerichonana. Preliminary studies suggest that while the hosts represent different animal classes, their symbionts, are of the same species. Finally, a strategy is outlined for using these probes to determine whether these symbionts are obtained de novo by each generation, or are transferred from parent to offspring.